Use of an NMR Spectrometer in an Undergraduate Chemistry Program

The goal of this project is to strengthen the undergraduate chemistry program at Saint Mary's College through the use of a nuclear magnetic resonance spectrometer in the curriculum. Four courses (Organic Chemistry II, Physical Chemistry II, Quantitative Analysis and Chemical Research) will be revised to provide students with an opportunity to put NMR principles into practice through "hands-on" experience, both in class projects and in independent research. Use of the NMR spectrometer will complement the current chemistry program in which students use infrared and UV-visible spectroscopic methods as well as methods in chromatography and electrochemistry. Thus, integration of NMR spectroscopy in the curriculum will give students a more complete preparation in the areas of instrumental practice and molecular structure determination.